Conference on the Assessment of Groundwater Models, March 21-23, 1994

9403359 Lau This is an award to support conduct of a conference on the quality of models used to characterize the movement of contaminants in groundwater. This conference is being jointly supported by the Environmental Protection Agency and involves participation by other Federal agencies, Principal Investigators of projects supported by the National Science Foundation and a consortium of six water research institutes in the Pacific Northwest and Oceania (Hawaii, Alaska, Guam/Micronesia, Idaho, Oregon and Washington). Results of this conference are expected to provide guidance in providing support for research needed to improve the efficacy and utility of groundwater models now used in engineering design of systems for remediation of contaminated groundwater. ***